ROW Planning Grant: Visualization Techniques to Aid the Analysis of Large Data Sets

This award is a planning grant under the NSF Program "Research Opportunities for Women." This type of grant aids women to develop their own competitive research programs. This activity comprises preparation of a detailed and competitive research plan in scientific visualization. Visits to universities, research centers, and producers of visualization software, as well as literature search, are involved.